Mathematical Sciences: Emphasis Year in Stochastic Analysis

9314637 Hsu The Conference on Diffusion Theory and Analysis will take place at Northwestern University from June 25 to June 30, 1994. The major activities during the conference are 15 invited one-hour presentations and free discussion sessions. The main purpose of this conference is to offer an opportunity for the mathematicians working in diffusion theory and analysis and other related fields to communicate and update their latest knowledge on the subject. Diffusion theory as a part of probability theory studies collective behaviors of a special class of random systems. These random systems are characterized by the properties that they evolve continuously in time and possessing so-called Markov property, which roughly means that the future of a system is independent of its past history and is completely determined by its present state. The class of random systems have been studies extensively both for its rich mathematical structure and its practical applications in science and engineering. Our conference emphasizes the mathematical aspect of diffusion theory, especially its applications in analytical fields such as differential geometry and differential equations. The speakers are carefully selected to reflect the current state of the art of the field. They are active research mathematicians whose lectures will no doubt both promote further research in the field and serve current educational activities by attracting new graduate students into our field.